Research Equipment Grant: 1.Dynamic Hygro-thermal-mechanical Thin-film Analyzer 2.Near Infrared Reflectance (NIR) Moisture Analyzer

9505511 Li Research equipment will be purchased for use in multiple research projects including: failure models for polyimide thin films, interfacial degradation in epoxy-resin laminates used in MCM-L; adhesion of polymer films to metal, ceramic and semiconductor substrates; materials characterization for the design of high level packaging assemblies; physical failures in plastic packaged microelectronics; and advanced packaging materials metrology. ***